Gravity Meter as a Tool for Earthquake, Earthtide, and Gravity Survey Instruction.

The Department of Geography and geology is acquiring a gravimeter to provide hands-on data collection ability for students in the introductory through upper division courses. This acquisition allows introductory students to observe long period seismic waves and calculate earthquake epicenters. Advanced students, in geophysics courses, are using the equipment to measure earth tides , conduct gravity surveys, and calculate anomalies. The instrument is also increasing the ability of